CAREER: Intelligent Portable Antenna Systems for High-Speed Wireless Communication

9983460
Bernhard

Intelligent Portable Antenna Systems for High-Speed Wireless Communication:
The wireless research and industrial communities agree that the
capabilities of portable units will constrain future high-speed wireless
system performance. In response to this challenge, Jennifer Bernhard's
research will develop intelligent portable antenna systems to improve the
reliability, throughput, and noise immunity of these networks.
Specifically, this project will implement new compact radiation-tunable
antenna with a performance-driven fuzzy controller on a portable unit.
This novel approach views portable antennas as dynamic components of the
communication system and will create an innovative paradigm for antenna
design and control. A team-based research framework will require
undergraduate and graduate students to cooperate to achieve common research
goals. Dissemination of research results will be coupled with outreach
activities to attract more women to electrical engineering. The education
activities will focus on "active" teaching techniques for electromagnetics
curricula that use real-world problems to develop students' teamwork,
problem-solving, and technical communication skills.
***